Collaborative Research: Escalation and the Role of Mass Extinction in the Cenezoic Evolution of the Naticid Gastropod Predator-Prey System

9405104 Kelley In this renewal, PIs will continue to test the escalation hypothesis, in which biological hazards have increased through time, and the adaptations to those pressures have also increased. PIs will continue to look at gastropod drilling frequencies, prey effectiveness, and predator behavior stereotypy based on the record of naticid drillholes. Recovery after a mass extinction is a new focus.